Research in Geometry and Topology

9971404
Bestvina
The goal of this project is to understand 3-dimensional
Poincare duality groups and pairs, subgroups of mapping class groups
and automorphisms of free groups, complex-hyperbolic surfaces,
polygons in symmetric spaces, line arrangements, Artin groups, and
dimension functions on groups.
The project focuses in part on the structure of symmetries of
objects naturally arising in geometry and algebra. The ancient Greeks
understood symmetries of Platonic solids, e.g., a cube or a
dodecahedron. Platonic solids are positively curved, and they have a
finite number of symmetries. At the opposite end of the spectrum are
negatively curved objects, such as the Lobachevsky hyperbolic plane
(featured frequently in Escher paintings), and these typically have
infinitely many symmetries. Consequently, the structure of these
symmetries is both more interesting and harder to understand. The
symmetries of an object form a ``group.'' One way to measure the
``size'' of a group, even when the group is infinite, is to talk about
its ``dimension.'' For example, the dimension of the group of
symmetries of the hyperbolic plane, depicted in the Escher drawing
mentioned above, is two, reflecting the nature of the plane. In
general, the concept of dimension depends on the background choice of
numbering system (coefficient ring). The project will study this
dependence. Yet another part of the project is the study of polygons.
These seemingly simple objects in the Euclidean plane and space become
increasingly more complex as one considers more complicated spaces. One
of the new phenomena is that an edge of a polygon may be determined not
just by its length but also by its ``direction.'' In the case of
ordinary space, if one fixes the origin of an edge, one can rotate the
second end to attain an arbitrary direction. A Euclidean triangle is
determined by its three side-lengths. To construct such a triangle it
is enough to satisfy three ``triangle inequalities.'' These properties
no longer hold in more general spaces, which makes study of polygons
there much more interesting and complicated.
***